Sensitivity Study of Processes Pertaining to the Ice Dynamics of the West Antarctic Ice Sheet Using 3-D Time- Dependent Whole-Ice-Sheet Model

This award is for support for a three year program to continue theoretical study of the West Antarctic ice sheet, including the enhancement of a three-dimensional time- dependent whole-ice sheet simulation program developed to help understand the three dimensional interactions of ice streams B and C and their boundaries. This work will improve on the basic model and will include those features necessary to allow the simulation code to be generally useful to the complete set of problems for which the physics is appropriate in both the Antarctic and Arctic. The model studies proposed are a general mass balance study of the West Antarctic ice sheet to get boundary para-meters fixed, then an in-depth study of Ice Steams B and C to determine the magnitude of different proposed mechanisms which govern their behavior.